CI TraCS Research Starter Supplement: Computational Nanoscience for Energy-Efficient Electronic and Thermoelectric Materials and Devices

The CI TraCS Research Starter Supplement to the Fellowship for Transformative Computational
Science using Cyber Infrastructure requests a high performance computing cluster. The PI plans to utilize it
to develop, debug, and deploy a comprehensive computational simulation platform for the numerical
simulation of coupled electro-thermal and thermoelectric transport in semiconductor nanostructures.